Bilinear Controllability of Semilinear Partial Differential Equations

0204037
Khapalov

In the modeling of controlled distributed parameter systems "additive"
boundary and internal locally distributed controls are typically used.
(Examples of such controls can be a source in a heat/mass-transfer process
or a piezoceramic actuator placed on a beam.) In terms of applications it
appears that such controls can adequately model only those controlled
processes that do not change their principal physical characteristics due to
the control actions. They rather describe the effect of various externally
added "alien" sources and/or forces on the process at hand. This
limitation, however, excludes a vast array of new and not quite new
technologies, such as, for example, "smart materials" and numerous
biomedical, chemical and nuclear chain reactions, which are able to
change their principal parameters under certain purposefully induced
conditions ("catalysts").

The intent of this proposal is to address the just-outlined issues in the
context of global controllability of semilinear partial differential equations
(PDEs) through the introduction and study of multiplicative (or "bilinear")
controls. These controls enter the system equations as coefficients.
Accordingly they can change at least some of the principal parameters of
the process at hand, such as, for example, the natural frequency response
of a beam or the rate of a chemical reaction. (In the former case this can be
caused, e.g., by the embedded "smart" alloys and, in the latter case, by
various catalysts and/or by the speed at which the reaction ingredients are
mechanically mixed.) The focus of this proposal is on the development of
a new methodology for the study of global controllability of the semilinear
reaction-diffusion-convection equation and of the wave and beam
equations in the framework of bilinear controls. We are particularly
interested in the effect such multiplicative controls may have on the issue
of controllability of highly nonlinear PDEs, in which case the classical
additive controls often appear to be inadequate.